NEESR-II: Highly Damage Tolerant and Intelligent Slab-Column Frame Systems Through Combination of Advanced Materials and Embedded Wireless Sensing

Structural systems that combine reinforced concrete (RC) slab-column frames with moment resisting
frames or shear walls find wide applications in zones of moderate and high seismicity. Due to
combination of lateral displacements imposed during earthquakes with gravity loads, slab-column
connections are prone to exhibit punching shear failures. Traditionally, the required shear strength of slabcolumn connections is achieved by the use of drop panels or shear stud rails. The work outlined in this
proposal is to develop a highly damage tolerant and smart slab-column frame system through the use of
high-performance fiber reinforced cement composites (HPFRCCs) and wireless sensing technology. The
development of new materials (HPFRCC) and smart structure technologies (computationally rich wireless
sensors) have previously occurred in isolated research communities - this proposal is a first of its kind to
explore their combination so that an intelligent HPFRCC structure capable of sustaining large drift
demands and self-performance monitoring can be derived. The revolutionary features of the NEES
infrastructure offer exciting paths of exploration that will lead to a more profound investigation of
intelligent HPFRCC slab-column systems.

In order to develop the proposed frame system, a series of HPFRCC flat slab specimens will be first
tested monotonically at the University of Michigan to optimize the HPFRCC material for this application.
A total of six large-scale slab-column sub-assemblages will then be tested under simulated earthquake
loading. Four of these sub-assemblages will be bi-directionally loaded using the NEES-MAST facility at
the University of Minnesota. The MAST facility is ideally suited to this application as it can be used to
load slab-column assemblages in a realistic manner to fully assess the shear capacity of HPFRCC
connections. The results of these tests will be used to develop models to predict the seismic behavior of
building systems employing these advanced materials and design provisions for the proposed slab-column
connections. To further enhance building safety, new technology in wireless sensors will be incorporated
into the project to develop instruments that can self-detect and report structural damage due to seismic
events. The high resolution cameras available at the NEES-MAST facility will enable the close
correlation of the wireless measurements with the accumulated damage, aiding in the development of a
damage index appropriate for this type of connection. An algorithm for the developed damage index will
be embedded into smart wireless sensors to track the performance of the structural system, including selfidentification of damage. Construction operations design studies, through the use of discrete event
simulation, will also be conducted to ensure the constructability of the proposed system.

Intellectual Merit: The outcome of the proposed work will be a highly damage tolerant and smart slabcolumn
frame system for use in seismic-resistant construction. This innovative system integrates the latest
developments in fiber cement-based materials and wireless sensing technology to deliver next-generation
slab-column frames capable of 1) resisting extreme dynamic loads with outstanding damage tolerance,
and 2) self-identifying structural damage. Hysteretic, damage, and design models, calibrated with results
from large-scale multi-axial sub-assemblage tests, will be developed for the safe and optimum use of the
proposed system. The experiments and associated models may ultimately lead to significant changes in
the design and construction of slab column frames in areas of moderate and high seismicity. Additionally,
smart wireless sensors, with the capability of self-detecting structural damage, will be developed.

Broader Impacts: Society will benefit from the immediate self-identification of damage of structures, as
building officials will be able to have access to the accumulated damage in a building immediately after a
seismic event and will be able to make better informed decisions on the remaining life safety of the
building. The use of the NEESgrid capabilities will allow an array of access to this research, from
construction and design professionals to high school students.

To encourage female and minority students to pursue graduate school careers in engineering, special activities are planned with the University of Michigan's Minorities in Engineering Program Office and the Women in Science and Engineering program such as including summer research activities for interested female or minority undergraduate students. The high-technology features of the NEES grid is a superb example of the power of interdisciplinary research and would motivate students to consider careers in Structural Engineering.